Conference: Exploratory Tensegrity

Vassar College is conducting a 2.5-day conference, as well as pre- and post-conference activities, that convenes a multi-disciplinary, multi-institutional (USA and international) team to conceptualize and plan various research, education and outreach activities in informal learning, focusing on the seminal concept of tensegrity and its applications in many fields of science and mathematics. Tensegrity is the characteristic property of a stable three-dimensional structure consisting of members under tension that are contiguous and members under compression that are not.

The conference will bring together researchers and practitioners in informal learning and researchers in the various disciplines that embrace tensegrity (mathematics, engineering, biology, architecture, and art) to explore the potential that tensegrity has to engage the public in informal settings, especially through direct engagement in creating such structures. This project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.

To date there have been no sustained informal educational projects and research around the topic of tensegrity. However, there is considerable related work on learning through "making and tinkering" upon which the participants will adapt and expand. The intended conference outcomes are to produce prototypes of activities, a research agenda, and lines of development with the potential to engage the wider public. A key priority of the gathering is the development of new partnerships between researchers and creators of tensegrity systems and the informal learning professionals. The long-term project hypothesis is that children and adults can engage with tensegrity through tinkering with materials and becoming familiar with a growing set of basic structures and their applications. The activities will include evaluation of the conference and a social network analysis of the collaborations that result.